CAS: New Strategies For Sustainable Synthetic Methods Using Nickel Catalysis

In this project, Professor John Montgomery of the Department of Chemistry at the University of Michigan is developing new processes for synthetic organic chemistry that are catalyzed by the earth-abundant metal nickel. A goal of this effort is to broaden the reach of nickel chemistry so that the innovative strategies and distinctive reactivity being discovered can impact a wide range of users and applications. The work will capitalize on the unique reactivity of nickel to discover and develop synthetic processes that are unknown with other metals and that provide rapid access to high-value products. The use of nickel catalysis offers substantial advantages over more commonly used catalytic processes involving precious metals, including lower cost, generation of less toxic byproducts, and more reliable access to catalyst precursors in bulk quantity from domestic sources. Students engaged in the work will be trained in the discovery of new reactions, synthetic methods development, organometallic chemistry, and mechanistic chemistry, with training matched for jobs in the pharmaceutical, biotechnology, agricultural, polymer, and petroleum industries among others. A strong focus on cross disciplinary research training, collaborative initiatives, and professional development for undergraduates will be sustained throughout the proposed project period, with sustainable catalysis being an important thread throughout these efforts.

The ability to tune reactivity and selectivity in nickel catalysis using unconjugated diene ligands is the underlying theme of the research plan. Important areas of focus in the research include gaining mechanistic insights into the novel role of unconjugated diene ligands in nickel and their application in the development of synthetic methods that enable direct additions to carbonyls using electrophilic and non-polar substrates. Further utilization of the unique properties of diene ligands will form the basis of development of multicomponent additions involving carbonyl substrates and new methods for enabling carbene transfer from simple precursors that lack diazo functionality. Novel diene ligand classes will be developed that offer improved selectivity, reactivity, and ease of access compared with existing alternatives. These efforts will create versatile and efficient new catalytic systems, synthetic procedures, and mechanistic insights that enable the creation of high-value products from simple and widely available feedstocks in an environmentally sustainable manner.